Application of Mossbauer Spectroscopy in Undergraduate Laboratories

Mossbauer Spectroscopy allows detailed chemical, structural and magnetic information to be obtained about atoms on the surface of a solid or within its bulk. The Wartburg Physics Department will acquire equipment to allow upper division students to use this valuable technique. It will be used in upper level laboratories for physics majors and in student projects. One of the projects will be aimed at characterizing the active phases of iron and iron-component catalysts and examining the catalytic properties of these phases. The equipment needed for this project are a multichannel analyzer, velocity transducer, function generator, drive generator, high voltage supply, detector, pre- amplifier, amplifier and single channel analyzer, and radioactive source.